Synthetic Materials in Environmental Engineering Practice

9406083 Vernon-Gerstenfeld This is an award to support a project to address the emergence, current and future role of plastics in environmental engineering practice. In addition to identifying further research needs, the investigator plans on considering the potential role that a museum exhibit could have in increasing public awareness of the role played by synthetic materials in fabricating water supply, distribution, storm and sanitary drainage components of the urban infrastructure. Special emphasis in this project is on those components of the urban infrastructure that impact directly on environmental and public health in contrast those that concentrate on structures such as roads, bridges and buildings. Results of this project are expected to assist in providing a basis for determination of research needs and thus be useful for program planning purposes. The undergraduate student who will assist the Principal Investigator on this project is Amy L. Fetzner. ***